A Family of the ODMG Object Models

The goal of this project is to provide research and technical solutions for major problems in the Object Database Management Group's (ODMG) Standard, the currently proposed industrial standard for object-oriented databases. The main expected contributions of this project to the ODMG Standard are in the underlying type systems, the model of persistence, and the constraint language. The approach is based on establishing a well-defined family of object models replacing the existing single and inadequate ODMG Object Model. The expected results also include some implementation models and techniques applicable to the technology proposed by the ODMG Standard. As the ODMG Standard contains a binding for the Java programming language, some results of this project will also be applicable to the Java technology in general. The research team will play an active role in transferring results of this project to the ODMG by making specific proposals to the future releases of the Standard. The results of this project are intended to contribute to proliferation of a whole generation of commercial object-oriented database management systems compliant with a well-defined Standard that reflects properly the state of the object-oriented research.

http://www.cs.twsu.edu/~alagic/nsf_ODMG.html